International Symposium On Ground Improvement, ReinforcementAnd Grouting, to be held in New Orleans, LA, February 25-28, 1992

The objective of this symposium is to serve as a technology transfer vehicle to exchange knowledge gained from recent developments in the U.S. and abroad in novel Engineering Materials and Applications, Design, Quality Control and Construction Practice on "Grouting, Soil Improvement and Geosynthetics." The Symposium will be an extension of the ASCE Specialty Conference on "Gouting and Soil Improvement, GSI-92" being organized by ASCE in New Orleans, Louisiana, February 25-28, 1992. The proposed symposium will provide an international forum for summarizing the state-of- the-art and stimulate further research.